Integrated Introductory Curriculum for Computer Science and Engineering

This project reforms first-year computer science and computer engineering curricula by implementing a common integrated freshman core curriculum. This integrated curriculum involves coordination of content and assignments for its courses. We utilize "just-in-time" instruction, where topics are introduced in given courses at precisely the appropriate time for those topics to be applied in other (concurrent) courses. Our efforts involve the integration of three one-year course sequences: a hardware sequence, a software sequence, and a mathematics sequence.